Woksape (Knowledge)

9550533 Gagnon VISION AND GOALS: Oglala Lakota College will create an opportunity for SEM education which does not now exist through Tribal or mainstream educational institutions. PROGRAMS: Oglala Lakota College and Sinte Gleska University will develop and administer bachelor's degree programs in Environmental Science and Software Engineering, and a pre-engineering associate degree in science. The degree programs will be extended to Cheyenne River, Standing Rock, and Sisseton Wahpeton Community Colleges through a distance learning mode. These Tribal Institutions, collectively called the Oyate Consortium, are Tribally chartered, and serve distinct American Indian populations - a population which is significantly underrepresented in SEM education. The model developed can be easily replicated in the other twenty-six Tribal Colleges. MANAGEMENT: Core management will consist of a Principal Investigator, a SEM Curriculum Specialist/Co-Principal Investigator, and the Sinte Gleska Site Coordinator and Vice President. In years two to five site coordinators from the three other Consortium member colleges will join the team. The Principal Investigator will report directly to the OLC President. SPECIAL FEATURES: Oglala Lakota College and Sinte Gleska University, the only accredited graduate and four-year degree granting Tribal Institutions, have recently gained land-grant college status. The Oyate Consortium is unique because of strong collaboration among Tribal colleges and with other universities and industry. This initiative, the first ever for Tribal College SEM program development, has potential for unusual impact because Tribal Colleges are community and nation-builders with the special mission of helping tribes which are sovereign nations, become more self-sufficient. Oyate Tribal Colleges are unique because they reach students who are not served adequately by ordinary universities. These are students who live and work on geographically isolated reserva tions, hold cultural values not appreciated by mainstream institutions, or who have extensive family responsibilities. The NSF Model Institutions for Excellence initiative offers a unique opportunity for the Oyate Tribal Colleges and their twenty-six Tribal counterparts to reach the underrepresented American Indian students, and to bring academic and technical expertise to Tribal nations in ways that may make the difference between extinction and tribal self-sufficiency.